The San Diego State University Computer Science, Engineering and Mathematics Scholars Program

The Computer Science, Engineering and Mathematics Scholars Program

This project is creating an environment for success for academically talented, yet disadvantaged engineering, mathematics, and computer science students by matching them with an engineer or
scientist to work side by side on a research project as well as actively participate in academic and professional development activities. Further, each CSEM Scholar has an industrial mentor who
works with the scholar for professional development. These activities provide
experience and foster confidence in each recipient thereby producing better qualified and well-
rounded graduates to enter the workforce or graduate school.